Linking Learning Science Theories and Measures to Economic Growth Models

This is a Small Grant for Exploratory Research (SGER) proposal that seeks to flesh out a stronger link and research agenda between economics theory and methods and the science of learning for the purposes of evaluative research and theory development. The project would be composed of a literature review, a small workshop, and the writing of a paper(s) for publication. All of these activities are proposed to be done as a collaboration of learning scientists at SRI and economists from academia.